Traveling Experiment Gallery

9552564 Maurer The Science Museum of Minnesota will prepare and circulate a 2500 sq. ft. traveling exhibit of the physical science activities from their successful "Experiment Gallery" exhibit, previously supported by NSF. Visitors studies indicate this gallery is the most popular and most visited of the museum's science halls. The activities cover five areas of physics; sound and saves, light, mechanics, weather, and electricity. It will include more than 25 activities and will go to a minimum of eighteen mid-sized and smaller museums over a six year period. Complementary activities include the development of a recipe book describing eleven volunteer-mediated science experiment activities developed by Experiment Gallery staff. The tour will be managed by the Science Museum's Touring Exhibits Department.